RUI: Structural and Metamorphic Evolution of the Eastern Margin of the Coast Plutonic Complex East of Mt. Waddington,Southwestern British Columbia

The Coast Plutonic Complex, an 1800 km long belt of Cretaceous and Tertiary metamorphic and plutonic rocks, straddles the contact between the Insular and Intermontane super terranes in British Columbia. These allochthonous bodies were accreted either during mid-Cretaceous time or possibly during the Jurassic. In order to help constrain models of the tectonic evolution of the Coast Plutonic Complex, this project will examine the eastern margin of the belt in British Columbia where the structural and metamorphic history of this margin can be documented and the relative importance of transcurrent and thrust faulting be assessed. By providing information on the timing, style and regional extent of deformation and metamorphism, the project will contribute towards a comprehensive model for the origin of the belt and accretion of the Insular terrane.